Hybrid Microelectronics Laboratory Equipment

Over the past two years, the Department of Electrical Engineering at Gonzaga University has established a program in thick film hybrid microelectronics. The curriculum has been modified to provide an adequate basis for the program, and a laboratory has been developed. The Department has developed a three-phased plan to upgrade the existing laboratory so that students may gain practical experience in high level computer-aided manufacturing (CAM) of hybrid microcircuits. The current phase, implemented through this project, allows the incorporation of an infrared zone furnace and an automated hybrid assembly unit. These pieces of equipment will enhance the educational, research, and development capabilities of the institution's existing hybrid microelectronics program.